Sciences and You

Prince George's Community College (PGCC) and the University of Maryland at College Park (UMCP) will conduct a model program in cooperation with the Prince George's County Public Schools. The program is designed to address the shortages of woman and monorities among engineers and scientists. The program, Sciences and You (SAY), will strengthen 30 women students' backgrounds in 1-3 weeks summer institutes, after graduation from high school and enroll them in a two year mathematics or science transfer program at PGCC. They will complete their baccalaureate degrees at UMCP. The goal is to bring at least 50% of the original cohort to graduation in science/engineering fields. Internships, monitoring, tutorials, field trips, parent/student evenings are among the program activities.